Robust Simulation of Physical Systems

Numerical simulation is an important tool for predicting the behavior of physical systems. Many powerful numerical simulation programs exist today. However, using these programs to reliably analyze a physical situation requires considerable human effort and expertise to set up a simulation, determine whether the output makes sense, and repeatedly run the simulation with different inputs until a satisfactory result is achieved. Automating this process is not only of considerable practical importance but will also significantly advance basic AI research in reasoning about the physical world. This project will address these problems of setup, analysis, quality assurance, and feedback for numerical simulation.